Experimental Studies of Population and Community Dynamics in Protist Food Webs

Laboratory experiments using Protists will test two alternate ideas about the limits to food chain length: dynamic fragility of longer chains versus interactions between productivity and the efficiency of energy transfer between trophic levels. A second series of experiments will test the contributions of environmental variation and storage effects to the maintenance of high ciliate diversity in ephemeral rain pools and their laboratory counterparts. A third set of experiments will explore the role of coevolution in producing observed temporal patterns of population dynamics, and will examine whether the presence or absence of sexual reproduction affects rates of coevolution. Other experiments will continue our ongoing investigations of the effects of omnivores and species richness on web dynamics. These experiments assemble replicated food webs of protozoans that differ in the number of trophic levels, productivity, omnivory, or species richness, and then evaluate the persistence and temporal variability in the abundance of each species in unmanipulated control communities and similar communities and similar communities subjected to small perturbations in nutrient levels. %%% This research will test food web theory which predicts relations between the structure of food webs and the dynamics of their component populations. Such information is valuable for understanding and predicting human impacts on complex aquatic communities.